Cellular Structure and Biology of the Helicosporidia: A Unique and Unknown Group of Invertebrate Pathogens

The Helicosporidia are a unique assemblage of pathogens isolated from a diverse group
of invertebrates with only one named species-Helicosporidium parasiticum. Morphologically,
this group is defined by the production of an unusual cyst stage that encloses three ovoid cells and a single elongate, filamentous cell. These organisms were at one time considered to be
protozoa or fungi but have been unclassified since 1931. Experiments outlined in this project
utilize the expertise of three research teams to explore the structure and function of this novel
pathogen. The approach taken in this project, dictated by the lack of biological information on
this organism, will provide a combination of morphology, life history, and molecular data. The
outlined objectives include a complete analysis of the in vitro developmental cycle of the
Helicosporidium sp. with an emphasis on the ultrastructure and replication of vegetative cells and
the morphogenesis of the infectious cyst. Preliminary examination has revealed that
Helicosporidia possess many unique cytological features, such as a pellicle that is formed by both
vegetative and cyst phenotypes, nuclei that enclose the cytosol, a number of undefined cell
organelles, and a harpoon-like filamentous cell. The combination of high-resolution light and
electron microscopy will provide detailed insight on the composition and structure of the surface,
wall structure, and internal morphology of this organism. Under controlled in vitro conditions,
time-lapse microscope studies will provide details on the developmental cycle of this pathogen.
Secondly, the in vivo infection process, development, and host range of the Helicosporidium sp
will be examined. Throughout the course of this study, cell-tracking technologies will be
optimized to analyze the ingress of this pathogen through the midgut barrier and its subsequent
development in the hemocoel. Unlike many insect diseases, Helicosporidium sp., although
isolated from an aquatic environment, can infect a wide range of terrestrial insect hosts. For
comparative purposes, both mosquito and lepidopteran larvae will be used to document the in
vivo cell cycle. To date, sequence data generated on rDNA and two proteins, actin and tubulin,
have demonstrated that Helicosporida belongs within the Chlorophyta and, as such, it represents
the first record of an insect-pathogenic alga. It should be noted that Helicosporidia nests
hierarchically within a group of organisms with radically different morphologies and life history
traits, allowing for comparative studies that can shed light on genes and structures that were
modified to achieve parasitism. Molecular studies will be directed at generating sequence
information on select genes from the Helicosporidium sp. and on EST libraries. A primary goal is
analyze the relationship between the genera Helicosporidium, Prototheca, and other members of
the Trebouxiaphyceae in order to gain a better understanding of the morphological, molecular,
and genetic changes that are correlated with the evolution of parasitism. Furthermore, analysis of
this sequence data in conjunction with morphological (ultrastructural) features will define the
taxonomic status and phylogeny of this organism. This project will provide support and training
for two graduate students and two undergraduate research assistants. The goal is to leverage the
combined talents of this group to provide students interdisciplinary training in molecular systematics,
histology, and pathology. These skills are crucial for the discovery, characterization, and
evaluation of microbials for applications to a broad range of scientific disciplines such as new
pest control technologies, novel protein and small molecule discovery, etc.